The Annual West Coast Regional Developmental Biology Conference, Stanford Alumi Center, Leaf Lake, California, May 3-6, 1990

Partial support is requested to defray room and board costs for graduate students attending the West Coast REgional Developmental Biology Conference for 1990. The conference is to be held on May 3-6, 1990 at the Stanford Alumni Center, Fallen Leaf Lake, California. The tentative schedule calls for thirty speakers, reflecting as full a mix of gender, race and degree of professional advancement as is compatible with the primary criterion of scientific excellence. Topics to be addressed in formal sessions include: 1) Cell adhesion in Development, 2) Molecular Basis of cell differentiation, 3) Induction, 4) Growth factors in development, 5) Pattern, 6) A Workshop on Techniques of Visualization. In addition, all attendees will be invited to contribute to a formal poster session. %%% These regional meetings have traditionally played a very important training function for younger scientists (graduate students and post doctoral students).